Instrumentation for the Incorporation of Cell Culturing and Hybridoma Technology into an Undergraduate Biology Program

This project is designed to give undergraduate students an opportunity to use new instrumentation for laboratory experimentation and research projects in cell culturing, hybridoma technology, protein isolation and characterization, and antigen-antibody analysis. The major instruments purchased are laminar flow hoods, an inverted microscope, a CO2 incubator, a liquid nitrogen storage tank, a centrifuge, an ELISA reader and software, and gel electrophoresis equipment. These are to be used primarily in a new cell biology course but also in existing courses in invertebrate zoology, embryology, immunology, genetics and a non-majors biology course. Independent study students can also utilize it. The college will contribute an amount equal to the award.